Undergraduate Faculty Workshop on Analog Integrated Circuit Design Using CMOS Technology

9353908 Caverly The workshop focuses on introducing undergraduate electrical engineering faculty to analog VLSI design principles as a natural outgrowth of the digital VLSI design process. These faculty are prepared to bring these design principles back to their universities for introduction to undergraduate electrical engineering students. The week-long workshop is a unique mix of analog design concepts, circuit simulation and laboratory measurements on typical CMOS analog circuits. User groups will be formed with the participants as a means to share information and provide leadership in bringing analog VLSI design concepts to an undergraduate audience. ***